Engineering Research Center for Engineering Design

Carnegie-Mellon University (CMU) will establish an Engineering Research Center on Engineering Design. The goal of the Carnegie-Mellon ERC on Engineering Design is to develop concepts, methods, and design technologies that will allow U.S. industries to design better, less expensive products more quickly. To accomplish this, the Design ERC will develop generic methods and tools that make possible an order of magnitude reduction in design cycle times and an order of magnitude increase in the ability to account for aspects of a product when performing a design. The ERC will emphasize the qualitative, heuristic aspects of design, using recently developed concepts from artificial intelligence and cognitive science. The key features of the ERC include a broad interdisciplinary approach to the problem of design and a plan that addresses all aspects of various issues that affect the design process from the creative concept to manufacturability and serviceability.